Interactions, Dynamics and Phase Transitions of Charge-Stabilized Colloidal Suspensions

9730189 Grier This continuation proposal by Prof. David G. Grier of the James Franck Institute of the University of Chicago describes a research program to study the microscopic origins of bulk properties in charge-stabilized colloidal suspensions. The experimental methods to be employed for these studies will include the use of a combination of optical trapping techniques in conjunction with high- resolution digital video microscopy. There are two thrusts. The primary thrust involves a systematic study of how the pairwise interaction potential depends on key control parameters already identified in previous work by the PI. This will involve the use of the "blinking optical tweezer" technique developed by the PI for measuring colloidal pair potentials. This comprehensive study will provide a basis for reformulating the theory of colloidal interactions. A valid theory of colloidal interactions is of major importance not only for colloid science in general but also for the critical role it plays in applied, industrial problems, such as the stability of suspensions. The second thrust centers on the phase transitions in mono-disperse charge-stabilized suspensions. Previous studies of colloidal phase behavior have taken as their starting point the basic understanding that like-charged spheres repel each other. However, systems whose pair potentials are characterized by attractive tails are predicted to undergo structural phase transitions not available to purely repulsive systems. Studies of the phase transitions of such systems are crucial to the understanding of the structure and dynamics of colloids. %%% This continuation proposal by Prof. David G. Grier of the James Franck Institute of the University of Chicago describes a research program to study the microscopic origins of bulk properties in charge-stabilized colloidal suspensions. The experimental methods to be employed for these studies will include the use of a combination of optical trapping techniques in conjunction with high- resolution digital video microscopy. There are two thrusts. The primary thrust involves a systematic study of how the pairwise interaction potential depends on key control parameters already identified in previous work by the PI. This will involve the use of the "blinking optical tweezer" technique developed by the PI for measuring colloidal pair potentials. This comprehensive study will provide a basis for reformulating the theory of colloidal interactions. A valid theory of colloidal interactions is of major importance not only for colloid science in general but also for the critical role it plays in applied, industrial problems, such as the stability of suspensions. The second thrust centers on the phase transitions in mono-disperse charge-stabilized suspensions. Previous studies of colloidal phase behavior have taken as their starting point the basic understanding that like-charged spheres repel each other. However, systems whose pair potentials are characterized by attractive tails are predicted to undergo structural phase transitions not available to purely repulsive systems. Studies of the phase transitions of such systems are crucial to the understanding of the structure and dynamics of colloids. ***